The Gene Scene: You and the New Biotechnology

The St. Louis Science Center plans to design and develop a 2400-square-foot permanent exhibit dealing with the fields of cellular and molecular biology, including biotechnology and genetic engineering. The primary goal of the exhibit is to affect the attitudes of millions of visitors, with the secondary goal being to serve as a model for other science museums and science centers.